Mathematical Sciences: Enhancement of Scientific Computing Equipment: Research in Applied Mathematics and Statistics

Moore 9627614 The Department of Mathematics at Tulane University will purchase a Silicon Graphics Power Challenge L Server with 324 MB RAM and 4GB Disk and the software packages Maple and Splus. The equipment purchased with this grant will be used for several research projects, including in particular: adaptive methods for solving parabolic systems in three space dimensions possibly coupled with elliptic systems, computational biofluiddynamics, and simulation methods for computational statistics. Professor Moore is developing an adaptive local refinement algorithm that utilizes variation in order and step-size in both space and time for parabolic systems in three dimensions. Applications of the code include models in electrophysiology and phase transitions in the mantle. Professor Fauci has developed a mathematical and a computational method to study the fluid dynamics of aquatic animal locomotion. Professor Dinwoodie is studying the Metropolis algorithm for simulating discrete distributions. Project participants also include one NSF postdoctoral associate, five graduate and one undergraduate students.